SBIR Phase I: High-throughput 3-D Insect Data Capture Enabling Large Scale Specimen Digitization and Machine Species Identification

This Small Business Innovation Research (SBIR) Phase I is directed toward high-throughput robotic
imaging and data capture of 3D physical insect specimens with applications to national intelligence and
security, vector epidemiology, agriculture, biodiversity research, and museum curation. Natural history
museums are vast, largely untapped sources of biological data for addressing complex questions ranging
from tracking terrorists to climate change. Yet ~1 billion U.S. specimens remain in museum drawers and
cabinets, their characteristics, associated data, and even their existence hidden. Insects preserved on
pins represent a significant proportion, with the ten largest collections housing over 100 million. While the
scope of collections is immense, the expertise needed to identify insects of importance is in decline as
taxonomists retire and university positions close. For some insect groups, few or no experts remain
capable of identifying species. The proposed technology will radically accelerate the pace of insect
specimen digitization. It will capture critical data from museum specimens and revitalize taxonomy by
providing datasets for computer-automated insect identification efforts. The project demonstrates robotic
handling of pinned specimens is feasible, enabling a high-throughput system capable of manipulating
pinned specimens, partitioning the 3D scene, photographing specimens, and extracting database
information with OCR rendering of specimen labels.

The broader impact/commercial potential of this project spans myriad applications. Insects vector
important diseases of humans, livestock, and crops. Annually, malaria is implicated in a million human
deaths worldwide and aphids and their viruses cost US farmers over one billion dollars. New invasive
insects regularly arrive on our shores undetected. Insects also have forensics applications, locating
events in time and place and calculating times of death. Tools to quickly and efficiently identify insects
have immediate application in vector epidemiology, agricultural and environmental monitoring, border
security and port inspection, law enforcement, and intelligence. Spatial-temporal data associated with
field collection of insect specimens are crucial for geolocation forensics, tracking climate change and
range expansion of invasive species, and locating geographic sources of potential biological control
agents for exotic pests. Current technologies and specimen digitization practices take too much time, cost
too much money, and simply cannot image most specimens. Semi-automated systems address only
microscope slide- or paper-mounted specimens. Currently no technology exists to even partially
automate the digitization of individual pinned insect specimens. Potential customers include insect
collections, museums, agribusinesses, epidemiologists, and agents in homeland security, port inspection,
environmental monitoring, and national intelligence. Enormous secondary commercial potential exists
with value-added online databases.